Studies of Optical Spectral Holeburning using Raman Coherent Population Trapping

9421304 Kim In this proposal, optical spectral holeburning is considered with Raman coherent population trapping in a folded three level lambda system. This is a novel technique which allows storage (and retrieval) of optical data with potentially significant advantages over conventional schemes. Each data pulse is composed of the two optical frequencies corresponding to the two legs of the lambda transition. The information about the pulse amplitudes and separations are encoded in the spin-rather than optical-coherence. This coherence is created by a two-photon process, so that its amplitude is proportional to the product of the amplitudes of electric fields (i.e., geometric mean intensity) of the two frequencies, and oscillates in phase with the beat frequency. Thus, both amplitude and phase sensitive optical data, encoded in the geometric mean intensity and the phase of the beat frequency, respectively, can be stored. This scheme of data storage and retrieval may have significant advantages over existing techniques. For example, the write window is determined by two time scales: the homogeneous decay time of the spin coherence, and the two-photon correlation time. This relaxes two constraints of optical data storage. First, only the ground-state coherences, and not the optical coherences, have to be long lived. Noting that spin coherences with lifetimes up to approx.1 second are known to exist in certain solids at room temperature, this technique opens up the possibility of finding high density optical data storage materials above liquid nitrogen temperature. Second, the laser frequency does not have to be highly stabilized, since the two photon correlation time can be made independent of single frequency linewidth if one laser frequency is generated from the other via acousto-optic modulation, for example. Finally, this system may be used to enhance the storage density since, in addition to the spin coherence, the Raman excitation can create optical coherence. Therefore, optical data can be stored in holes burnt in a two-dimensional frequency space, leading to a five-dimensional data storage. In the time domain picture, such a combined scheme corresponds to extension of the write window, enabling the memory capacity (at a single position) to exceed the current fundamental limit imposed by the ratio of the optical inhomogeneous to homogeneous linewidths. The basic physics of optical spectral holeburning using Raman coherent population trapping will be studied to determine suitability for potential applications to optical data storage and image processing. This will be accomplished by performing experimental and theoretical studies of spectral holeburning in rare-earth doped crystals. Specific experiments include basic characterization of Raman population trapping in a doped crystal, storage and retrieval of optical data with Raman-excited spin echoes in solids using modestly stabilized lasers, and basic demonstration of enhanced storage density via spectral hole burning in a two dimensional frequency space. Theoretical calculations will include more than two ground-states in order to more closely match the characteristics of the actual systems. Finally, projections will be made, based on the experimental and theoretical results, as to the feasibility of practical optical memories with Raman population trapping. ***